EAGER: Electromagnetic Detection of Brain Activity

Noninvasive measurements of brain activity are widely used for medical diagnostics and scientific research. Widely used methods include functional magnetic resonance imaging (fMRI), electroencephalography (EEG), and functional near-infrared spectroscopy (fNIRS). While fMRI is capable of measuring activity in the entire brain, it requires the use of highly expensive instrumentation in a hospital setting. EEG and fNIRS are relatively portable and inexpensive, but are limited to the detection of neural activity that occurs in superficial layers of the brain. There is an unmet need for a method that is capable of detecting activity in brain regions inaccessible to EEG/fNIRS, but at lower cost and with higher portability than fMRI. Electromagnetic (EM) radiation at radio or microwave wavelengths is capable of penetrating deep into the brain. Propagation of EM waves through the brain is governed by tissue dielectric properties. It has been demonstrated that neural activity causes measurable changes in brain organoid dielectric properties. In this project, the activity-dependent changes in the dielectric properties of brain tissue will be used to develop a non-invasive method of detecting brain activity via EM waves. This project may lead to the development of low-cost, portable systems for non-invasive imaging of brain activity. These systems may find wide applications in fields ranging from medical diagnostics to monitoring patients at home or in other non-traditional health settings to complementing existing digital health approaches.

This project focuses on the development of a novel non-invasive method for detecting brain activity via EM waves. Project objectives are to demonstrate the feasibility of this method, and to develop a computational model of an imaging system capable of localizing an active brain region. Project is organized into 2 tasks: task 1 will be to experimentally demonstrate the feasibility of detecting brain activity in humans via EM waves. Different brain regions will be activated by visual or motor tasks, and antennas placed near the head will transmit and receive EM waves. Changes in the EM propagation parameters will be temporally correlated to the behavioral tasks, and significance of the correlations will be assessed. In parallel with experiments, task 2 will be to carry out simulations of antenna arrays placed around an anatomical virtual model of the head and brain. Simulation will be used to determine antenna designs suitable for localizing activity occurring in different brain regions, and to assess whether imaging of the activated brain region via calculation of the reverse problem is feasible. The application of radio and microwave frequency electromagnetic waves to the detection of brain activity may enable observation of the function of deeper brain structures than those accessible via EEG or fNIRS, at a small fraction of the cost and resource requirements of fMRI. Furthermore, use of EM waves may enable detection of brain activity at a distance – something that is not possible with current methods. Preliminary results in vitro (in brain organoids) demonstrated feasibility of detection of neural activity via EM waves. However, translation of this novel sensing modality from in vitro organoids to the human brain has not yet been accomplished. Proposed project seeks to demonstrate the feasibility of this translation, and to modify imaging technologies previously used for stroke diagnostics to enable imaging of brain activity. Future development of the technology based on the results of this project is expected to have significant impact on neural health. Education and outreach activities to expand the workforce will be integrated with the research. Research findings will be incorporated into courses taught at Lehigh University, and undergraduate students will be recruited to participate in research activities. K-12 outreach will also be carried out through Lehigh Valley school districts.